Numerical Relativity and Cosmology (Physics)

The objectives of this project are: to conduct research in numerical relativity and cosmology aimed at understanding the physics of the gravitational field. This work will be carried out using large-scale numerical simulations supported by analytic work and extensive test-bed calculations. A major feature of this program is the development of significant numerical tools and their successful application to outstanding problems in gravitational waves and astrophysics.